Drafting Fundamentals - Micro-CAD Laboratory

This project supports a state-of-the-art transition in industrial technology education. Using the equipment purchased through this award, students are able to gain expertise in Computer Aided Design and Drafting, migrating from the traditional two-dimensional paper and pencil environment to a three-dimensional dynamic environment. The primary equipment housed in the laboratory includes: Zenith CAD workstations with hard disks, co-processors, and CAD software. The workstations are networked, allowing design interaction and use of a digitizing tablet an printer/plotter. This award is being matched by an equal sum from the grantee.